An Experimental and Analytical Investigation of Pin Fin Heat Transfer for Physics-Based Modeling

The proposal is for an experimental and theoretical research program to investigate turbulent flow and convective heat transfer in pin fin arrays, which are an important component of modern gas turbine blade cooling systems. From the database generated from comprehensive experiments, the development of more physically based turbulence closure models will be undertaken, and these will be applied to commercial software packages. The results, if successful, will allow improved cooling system design with more rapid design cycles, leading to reduced cost and higher engine efficiencies due increased allowable turbine inlet temperatures.